Cooperative Research in Integrated Circuit Technology

The Semiconductor Research Corporation (SRC) is an industry cooperative organized and operating in the area of generic research in support of the industry's competitive needs. Government participation in this cooperative activity will provide a valuable increment of resources and, of equal importance, will provide the basis for an industry-university-government cooperative activity to address the national need for a competitive, on a worldwide basis, integrated circuit industry.